EAGER: Enabling research on migrating enterprises to the cloud using GENI

This research project is tackling challenges associated with migrating enterprise applications to the cloud, including (i) models to predict the impact on performance; (ii) methodologies for assurable policy reconfiguration; and (iii) architectures for cloud data-centers that can provide quality of service guarantees. This project is exploring how GENI can help validate our research, and will use resources including ProtoGENI, Planetlab, and Openflow.

Intellectual Merit: Evaluations using a realistic environment such as GENI will (i) aid in determining models for predicting application performance that make an appropriate trade-off between accuracy and complexity; (ii) enable evaluation of designs for cloud data-center architectures; and (iii) lead to insights on principles for architecting cloud data-centers.

Broader Impact: If successful, the project will have a transformative effect on IT organizations by enabling them to migrate to the cloud. The project will train graduate and undergraduate students on the use of GENI.